Colloquia on Infrastructure for Tomorrow's Metropolis

This award is for partial support of a Colloquia on the Nondestructive Evaluation for Infrastructure Management to be conducted by the Building Research Board.